Bringing Research on Learning to Practitioners in Informal Science Environments

The Board on Science Education at the National Research Council of the National Academies will develop practitioner-focused resources based on a synthesis study on Learning Science in Informal Environments (LSIE), a comprehensive review of educational research funded through a previous NSF award. Project deliverables will consist of a publication, video and digitized web resources designed to guide the application of the research findings presented in the LSIE report.

The goals of this project are to support efforts to advance science education for diverse learners, to bridge research and practice, and to provide the broader informal science education communities access to research-generated knowledge. The project will greatly extend the impact of the synthesis study by making evidence-based approaches more widely available and utilized by informal science educators and insitutions.